Futures in Science

The Oklahoma State University will initiate a four-week, residential Young Scholars project in Biology, Chemistry, Mathematics and Physics for 36 students entering grades 9 and 10. The program will consist of morning lectures in mathematics, statistics and the philosophy and ethics of science with afternoon laboratory experiences in biology, chemistry and physics. Participants will be divided into three groups of twelve to rotate through the afternoon laboratory sciences, and all 36 students will spend the first 2 weeks of the camp attending the sessions on mathematics, statistics and philosophy. During Week 3 the students will cover career exploration and visits to various laboratories on the campus of the Oklahoma State University. Evening programs to include astronomic observations as well as time to visit the library and to work on class assignments will be arranged. In addition, a trip to the Omniplex -- a science museum and planetarium in Oklahoma City -- is planned for one of the Saturdays during the project.